Phonon Emission From a Hot Two-Dimensional Electron Gas

Phonon Emission From a Hot Two-Dimensional Electron Gas This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia, and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project addresses questions of the measurements on the nature of the phonons emitted from a hot two-dimensional electron gas contained in semiconductor devices at low temperatures. Under these conditions, the principal energy loss is by acoustic phonon emission. The research is of interest because the much higher electron mobility in these devices should lead to well defined cyclotron frequencies as well as providing an opportunity to examine effects associated with cutoffs in the phonon-wave vector. The project is under the direction of Dr. James M. Madsen, Department of Physics, Colorado School of Mines, Golden CO 80401, U.S.A., and Professor L.J. Challis, Department of Physics, The University of Nottingham, University Park, Nottingham NG7 2 RD, England. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 or the U.S. home institution.